SGER: Apparent Group Selection on Butterfly Diet

9905367
Singer
Spatial patterns in plant-insect interaction may be caused by variation among plants, among insects, or both. Often, the nature of the variation may produce the appearance that insects are variable, when in fact it is the plants that vary (or vice versa). In this SGER project, this investigator will tease apart the two variables to understand the cause of an apparent example of interdemic selection acting on butterfly diet. The result will tell us if interdemic selection really does act in this system. The importance of this project is that there are still no documented examples of interdemic selection in nature, for any trait of any organisms. This plant-herbivore system will provide the best opportunity yet to address this interesting and controversial research question.